Boundaries of Nonpositively Curved Groups

9704939 Ruane An important class of groups for which geometric ideas have proven useful is the class of word hyperbolic groups proposed by M. Gromov. These are groups which discretely approximate a geometry more like that of the hyperbolic plane than the Euclidean plane. It is currently of interest to extend this well-developed theory of word hyperbolic groups to the ``nonpositively curved'' setting. Just as word hyperbolic groups are a generalization of the classical hyperbolic groups, finitely generated free groups, and certain small cancellation groups, there should be a general class of nonpositively curved groups that includes finitely generated free abelian groups, more general small cancellation groups, and fundamental groups of Riemannian manifolds of nonpositive curvature. Recently, there have been several proposed classes of nonpositively curved groups. One such class consists of groups that arise via geometric actions on ``CAT(0)'' spaces. These are spaces which enjoy many of the same geometric properties of universal covers of Riemannian manifolds of nonpositive curvature. Both the Euclidean and hyperbolic planes are examples of CAT(0) spaces. The boundary of a CAT(0) space which admits a geometric group action is an object of great interest in the area. Recently, several important problems in group theory have been solved with the use of geometric methods. For word hyperbolic groups, the boundary has proven a useful tool. Many of the theorems which hold in that setting should have generalizations to the nonpositively curved setting, and that is the point of view taken here. It is already known that replacing the phrase ``word hyperbolic'' with ``CAT(0)'' in many of these theorems is not going to work, but finding the right theorems is an important step in unifying the theory of nonpositively curved groups, much like the theory of nonpositively curved manifolds. The basic idea of Geometric Group Theory is to study the structure of an infinite group G by studying ``geometric'' actions of G on different geometries. In this way, any such group is viewed as a set of rigid motions of a geometry. An example to keep in mind is that of the Euclidean plane. This is a geometry whose boundary can be identified with the unit circle, where each point of the circle represents a direction in the plane which heads out to infinity. A rigid motion in a straight line is known as a translation. This space (the plane) may be acted upon by translations in any direction, but translations in two independent directions will suffice to give all of them. Thus two (commuting) copies of the group of integers can be thought of as acting on the plane by translation. In fact, this geometric setup determines this group almost uniquely. In general, when a group acts geometrically on a geometry, there is a ``picture'' of the group inside the space created by following the image of one point under all of the group elements. Then the group, which started out as an abstract mathematical object, can be studied by studying the geometry of the space, where the problems are now geometric instead of algebraic. In the example above, the group consists of moves from one square to another on an infinite chess board. The collection of moves may then be given a concrete geometric picture by indentifying each square with its center, the totality of moves becoming a lattice that discretely approximates the plane. ***